SBIR Phase I: Hardware-Assisted Security Monitoring for Embedded and Wireless Systems Using Power Fingerprinting

This Small Business Innovation Research (SBIR) Phase I project aims to demonstrate the technical and
commercial feasibility of a novel approach called Power Fingerprinting (PFP) for integrity assessment
and intrusion detection in critical embedded and wireless systems based on side-channel analysis by an
external monitor. Such integrity assessment approach is fundamental for protecting critical
systems from cyber attacks in government agencies, financial institutions, military command,
and industrial control. PFP treats cyber security as a signal detection and classification problem and
introduces tangible quantitative metrics for security and trust. Phase I objectives include: (1) demonstrate
the feasibility of characterizing kernel modules and core applications for embedded systems; 2) extract
behavioral signatures to improve performance; 3) develop techniques to compensate for variations in
power consumption due to manufacturing and environmental variations; and 4) create a general
architecture for the application of PFP. The research will be performed using Angstrom Linux on a
Beagleboard embedded platform, from which PFP signatures will be extracted and used to detect
malicious intrusions in blind tests. The expected result is to achieve over 95% accuracy in detecting
execution anomalies during blind tests and provide a baseline to develop a commercial PFP monitor
prototype in Phase II.

The broader impact/commercial potential of this project includes the development of an innovative
mechanism for early detection of cyber attacks to critical infrastructure from well-funded adversaries.
Such attacks, if not promptly discovered, that can steal state secrets and intellectual property with
devastating consequences to national security. PFP brings a new perspective to cyber security treating it
as a signal detection and classification problem and introducing tangible quantitative metrics for integrity
and trust. PFP addresses a growing need to secure critical embedded systems. PFP is very difficult to
evade, adds little overhead in the processor being monitored, and is effective against zero-day attacks. In
comparison, traditional cyber security monitoring approaches are susceptible to evasion and ineffective
against new attacks because they depend on known malware signatures. These features make PFP capable
of detecting sophisticated covert attacks and rootkits, such as the recent Stuxnet worm. PFP has dual
application in the commercial and government markets, particularly for resource-constrained and
embedded platforms, including smart phones, smart grid, critical industrial control, and tactical
communication devices. PFP has the potential to become a fundamental player in cyber-security by
protecting the nation’s infrastructure and promoting further development of the economic base and
employment.